Acquisition of a High-field FT NMR Spectrometer for Under- graduate Research and Instruction

A High-Field Fourier Transform Nuclear Magnetic Resonance Spectrometer System including variable temperature, hard disk, and coprocessor accessories is being used to introduce new experiments in the Physical, Inorganic, Advanced Analytical, and Introductory Organic Chemistry Laboratory Courses. The scientific productivity of the undergraduate research program is being substantially increased. Examples of student research projects which are being made possible by this instrument included: (I) studies of the stereochemistry of augmented thermal and photochemical Cope rearrangements; (II) synthesis and studies of the regio- and stereochemistry of dealkoxycarbonylation reactions of thienyl substituted polyalkoxycarbonyl ethenes as possible polythienyl precursors; (III) synthesis and conformational studies of Schiff base coordination compounds as possible laser materials; and (IV) the synthesis of silicone compounds of theoretical interest. The grantee is matching the award from non-Federal sources.